Neutrino and Subterranean Science Conference - NeSS 2002

An International Workshop on Neutrinos and Subterranean Science, NeSS 2002, will be held in Washington D.C., 19-21 Sep 02. NeSS 2002 will be a major workshop designed to evaluate and integrate the results of many of the recent developments in neutrino, low background and geo-science investigations requiring great subterranean depth. The genesis of the workshop is a statement found in the fiscal year 2003 budget request for the NSF.